Conference: GEO-CM: Workshop: Envisioning the Future of Critical Minerals and Materials Cyberinfrastructure

Modern technologies rely on secure supplies of essential minerals. Finding these resources increasingly depends on integrating data from a wide range of sources. This workshop brings together experts to discuss and design a shared digital network for critical minerals and materials. Outcomes of this event will help secure vital supply chains, strengthen national infrastructure, and train a modern science workforce.

This two-day workshop will convene participants from academia, government, and industry to establish a strategic roadmap for critical minerals cyberinfrastructure. The event will address multi-modal data integration, data silo harmonization, and interoperability standards for artificial intelligence-driven economic geology. Following the workshop, a comprehensive public report and a peer-reviewed journal publication will share outcomes of the meeting.